Project X: Exchange of Information on Technical Careers

This project, sponsored by the University of Wisconsin at Madison, will provided a three year program to train teams of high school and middle school teachers and counselors about career issues in science, engineering and technology, In the first year 12 teams will meet to learn about scientific and technical careers, develop communication and leadership skills and prepare materials for in- service activities. In the second year 18 additional teams will join the project to participate in revision of the materials and to prepare for dissemination activities. In the third year the final drafts of the materials will be developed and the information about careers in science and technology will be dissemitated throughout the state. The NSF grant is being matched by finds from the University of Wisconsin at Madison and the institutions in the collaboration by an amount equivalent to 21% of the grant.